Understanding the Group Processes in Technology Supported Group Work

The goal of this project is to guide the building of appropriate technology to support the work of small groups. The strategy is to interleave empirical work with theory building, and field work with lab work. The field of research provides baseline data about how small groups work on specific tasks. Further, the field data helps suggest the kind of groupware that might assist that kind of work. Tasks that mimic the key aspects of behavior in the field have been developed for use in the lab. These are used to explore the value of various forms of groupware support for both face-to-face and distributed work. Different forms of audio and video support are also investigated for distributed work. The empirical work is used to evolve a conceptual framework in which characteristics of the group, the task, and the technology are related.